U.S.-China Research Development Visit with EASI: Experimental Study on Humanoid Robots

0314120
Xi

The project is about a planning visit for developing collaborative research work in developing collaborative research work in in humanoid robots with researchers at the CAS Institution of Automation in China. The proposed study would contribute to the advanced humanoid robot systems, strengthening the research collaboration between U.S. and China in the subject area.